Fundamenal Studies of Biorecognition Elements Sequestered Within Xerogels

This project, sponsored by the Analytical and Surface Chemistry Program, continues research on utilization of sol-gel derived xerogels for chemical analysis. The research, conducted by Dr. Frank V. Bright and his students at SUNY-Buffalo, focuses on the behavior and performance of enzymes, antibodies, and signaling proteins that are sequestered in xerogels. These protein doped xerogels are used as platforms for developing discrete and distributed biosensors. The experimental aproach first develops a fundamental understanding of how the analytical performance of xerogel entrapped proteins is influenced by the the choice of xerogel host matrix chemistry, co-dopants, and preparation protocol. The next step determines precisely how the xerogel host matrix chemistry, co-dopants, and preparation protocol affect 1) the biorecognition element's dynamics and 2) the environment around the sites within the biorecognition element that are responsible for producing fluorescence in the presence of the target analyte. Finally, the project uses results from the steps above to produce biosensors and distributed biosensor arrays that are more robust, stable, and reliable than those that are currently available.

Use of the sensors developed by this project could result in faster, more reliable, and less costly clinical analyses.